Toward the Twenty-First Century: Problem Solving Through Science, Technology and Society for a Middle-Level Science Curriculum

A unique partnership, the New York Science, Technology, and Society Project, will develop 12 modules for teaching science in grades 7-9, field test them, and then use a group of forty Resource Agents to disseminate them to teachers statewide. The partnership is composed of the Atmospheric Sciences Research Center at State University of New York-Albany, the New York State Education Department, and the New York Power Pool, a consortium of power companies. This partnership has already developed award winning elementary-level energy education units; the middle school units will expand this base to a variety of areas in life, physical, and earth sciences, with a strong emphasis on science/technology/society issues. These middle school modules will be incorporated into the state middle school science syllabus and the Regents Competency Test in Science. Special attention will be paid to making the modules appropriate for female and minority students who have traditionally found science moved away from science during these middle school years. Cost sharing by the partners will total 210% of the NSF funding.